Electromagnetic Nuclear Physics at Intermediate Energies

This project involves the experimental study of the properties of strongly interacting particles of matter known as hadrons. These hadrons which include protons, neutrons, and mesons, as well as their excitations, are what atomic nuclei are composed of, and constitute about 99% of all ordinary matter on Earth. The hadrons themselves are composed of quarks and strong energy called gluons. Surprisingly, we do not yet know how quarks and gluonic energy are arranged to produce the properties of prosaic matter. Our research group will study quark and gluonic properties of hadrons and their excitations using primarily the new high precision superconducting electron accelerator CEBAF at Jefferson Laboratory. in preparation for these experiments, we had been working for many years on the design and construction of large particle detectors using the leading edge technology. Several graduate students will obtain Ph.D. degrees based on these experiments, and many undergraduates will obtain hands on experience with modern technology.